Small Grants for Exploratory Research: Renewable Soft Cutting Tool Coatings

This project will study the lubricating effect of a thin layer of aluminum on the surface of a ceramic cutting tool when it is used in the machining of superalloys. The investigators have noticed that a strongly adherent layer of aluminum deposits on the face of an alumina-zirconia cutting tool when aluminum is machined. The project will determine whether such a layer may provide effective reduction in the wear of the tool in the machining of difficult to machine alloys, such as hardened steels and superalloys. If the layer does provide such lubricating action, some investigations may be attempted to develop practical methods for utilizing and optimizing the effect under practical machining conditions. The machining of superalloys and hardened steels is a significant industrial problem, providing a major cost in the production of aircraft engines, in particular.